Expanding Opportunities for Women in the Computing Sciences (Workshop)

This award is to fund a 2-day workshop that will examine and identify areas in which NSF could have an impact on attracting and retaining women in academic careers in the computing sciences. The workshop will address issues such as professional support and development, pipeline issues, academic faculty careers, visibility of women in the field, and partnerships between academia and industry. It is anticipated that several initiatives and recommendations for programs will emanate from the workshop. Dr. Susan Conry will be organizing a workshop directed towards identifying how to extend the scope of opportunities for women to do research and teaching in the academic computing sciences. The workshop will be organized around five or six major topic areas. The workshop is expected to produce for the CISE Directorate, a set of recommended programs and initiatives.